Solar Imaging Vector Magnetograph for MAX '91

In the MAX91 report Flare Research at the Next Solar Maximum, six fundamental questions identify the highest priority flare research during solar cycle 22: 1. How and where is flare energy stored? 2. What causes flare energy release? 3. What are the mechanisms of flare energy release? 4. How are energetic particles accelerated? 5. What are the mechanisms of flare energy transport? 6. How do flare effects propagate to Earth? None of these questions can be answered in a satisfactory manner without vector magnetic field measurements. Such observations are as important to understanding solar flares as are y-ray, X-ray, or microwave observations. The collective research experience during the last two solar cycles has shown that only through coordinated multispectral sets of observations can we hope to understand how and why solar flares occur. Dedicated observations with a high-performace imaging vector magnetograph at Mees Solar Observatory (Haleakala, Maui) will maximize the continuity, frequency, and reliability of vector magnetic field measurements of solar flares and active regions during the MAX91 time period (1991-1994). This instrument will provide solar vector magnetic field data that are necessary: (1) to understand the relationship between the coronal structure and evolution of vector magnetic fields, X-rays, and particle acceleration; (2) to measure the variation of magnetic free energy of active regions and its relationship to major solar flares; (3) to map photospheric electrical currents and relate them to coronal X-ray structures and the sites of energetic particle precipitation. The instrument will obtain the required narrow-band polarimetric images using a rotating quarter-wave plate, Fabry-Perot etalon, and acousto-optic tunable filter, building on experience with these components at the telescopes of the University of Hawaii. Its benefits to solar research during MAX91 will accrue from its high spatial, spectral, and temporal resolution, spectral agility, and on-line data reduction capabilities.